Action Math and Physics Laboratory Experiences (AMPLE): An Enrichment Program to Develop Young Scholars in West Virginia -- EARLY ALERT

Fairmont State College will initiate a three-week summer component, commuter, Early Alert Initiative Young Scholars project in Mathematics and Physics which will offer science enrichment activities for 36 precollege students entering grades 7 and 8. This program will emphasize laboratory research participation. Manipulatives, real-world problems, various calculators and computers will be part of the "action" mathematics component. Career exploration experiences will be provided with professional counselors, mathematicians, engineers and other scientists both at Fairmont State College and three different sites, including the Morgantown Energy and Technology Center and the National Radio Astronomy Observatory at Green Bank.